Summer School on Homotopy Type Theory 2019

This award supports attendance by 20 graduate students and postdocs affiliated with US institutions at the Summer School and Conference on Homotopy Type Theory to be held August 7-17, 2019 at Carnegie Mellon University in Pittsburgh.

Homotopy type theory is a new field of mathematics that draws on logic, homotopy theory, category theory, and computer science to create a new foundational system for mathematics that can be implemented in a computerized proof assistant. Students and postdocs attending the summer school will be introduced to the basic mathematical theory and trained in the use of the associated computer systems. They will also be exposed to current research and open problems, and provided with the necessary tools and resources to begin their own research, independently and in collaboration with others. The summer school will take place over four days, followed by a research-oriented conference of 6 days. Further information can be found at the website: https://hott.github.io/HoTT-2019.